Immobilizaton of Enzymes on Porous Membranes

This is a Career Advancement Award-ROW. The goal of the research is to understand the factors that affect the distribution of enzymes within a pore. The research includes a fundamental study of the complex process of enzyme catalyzed reactions in porous supports. The results have application in the design of reactors for many biochemical processes.